Workshops for Teaching Simulation to Computer Science Majors

The importance of teaching simulation to Computer Science majors has become increasingly apparent in recent years, as discussed at a number of professional meetings. For this reason, there is a growing need for well-trained faculty to teach simulation. The purpose of this project is to design, organize and hold a workshop and follow-up meeting that will enhance skills for teaching simulation for undergraduate computer science majors, produce resources and modules for teaching computer simulation, and facilitate and promote interaction among simulation educators. The workshop is an outgrowth of materials developed from an NSF-CCD grant, "Simulation for Computer Science Majors."